Complex Singularities in Numerical Analysis and Nonlinear Dynamics

This project will investigate the precise analytic form of the complex singularities of
the Lorenz system, the figure-eight solution of the three-body problem, and signals obtained
from the Navier-Stokes boundary layer. Both analytic and numerical techniques
will be used. Research on the Lorenz system has the aim of understanding the analytic
continuation of the Lorenz solutions to the entire complex plane. With regard to the
figure-eight solution, the project will show that the complex singularities of this system
have an appealingly simple structure. The Navier-Stokes boundary layer has been
studied primarily using techniques from spectral analysis. We will locate and elucidate
singularities of the analytic continuation of the signal in the complex plane, and and
obtain a measurement as well as an understanding of the time scales imposed by the
outer flow.

This project endeavors to benefit the public in two respects. Firstly, we aim to obtain
new insights into the Navier-Stokes boundary layer which is of immense importance in
engineering and meteorology. As an example of its importance, we mention that a
major part of the energy intake of automobiles is dissipated in the boundary layer.
Secondly, we will write a new book that puts computer architecture at the heart of
scientific computing. This book will introduce a style of scientific computing that is
deeply informed by recent progress in computer architecture to a wider audience.